400 MHz Multinuclear NMR Spectrometer

This award from the Chemistry Research Instrumentation Program will help the Department at Indiana University acquire a 400 MHz NMR Spectrometer which will be used in research investigations in the following areas: (1) metallo-organic chemistry; (2) metal carboxylate chemistry; (3) materials-related chemistry and organometallic chemistry; and (4) nucleic acid catalysts (ribozymes and deoxyribosymes). Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in areas such as polymers and catalysis, and in biology.